Modeling the Transport and Exchange of Krill between the Antarctic Peninsula and South Georgia

9525806 Hofmann Increasing evidence indicates that krill populations surrounding South Georgia are supplied by krill exported from the Antarctic Peninsula region. However, little knowledge of the potential krill transport pathways exists. General circulation patterns for the Antarctic Peninsula and Scotia Sea regions are known. However, recent observations have shown considerable mesoscale structure to the flow on the continental shelf west of the Peninsula, in Bransfield Strait, around Elephant Island and in the Scotia Sea, which potentially influences krill transport and retention. Moreover, local hydrographic and current conditions have considerable influence on the development and growth of krill. Hence, understanding and elucidating krill transport pathways or possible retention regions requires knowledge of the mesoscale current and water mass distributions. The overall goal of the research is to investigate transport of krill between the Antarctic Peninsula region across the Scotia Sea to South Georgia. To accomplish this general objective the following specific research objectives will be pursued: (1) implement a circulation model for the Antarctic Peninsula-Scotia Sea region; (2) interface an energetically based model for the development of krill from larva to adult with the circulation model; and (3) use the circulation-krill model to investigate the retention and/or transport of krill in the Antarctic Peninsula to South Georgia. This modeling study is a joint effort between E. Hofmann and J. Klinck at Old Dominion University and Dr. Eugene Murphy at the British Antarctic Survey (BAS) in Cambridge, England. It will provide a framework for analyzing, synthesizing and integrating the large environmental and krill data sets collected by BAS around South Georgia with those from the Antarctic Peninsula region that have come from historical sources (e.g., BIOMASS) and the Palmer Long Term Ecological Research (LTER) Program and those from the Bransfi eld Strait and Elephant Island regions from the U.S. Antarctic Marine Living Resources (AMLR) program. Moreover, the proposed modeling studies are relevant to the key science questions set forth by U.S. GLOBEC (GLOBEC, 1990) and International GLOBEC (GLOBEC, 1993) for the Southern Ocean. In particular, it addresses issues related to the role of circulation and biological processes in structuring Antarctic krill populations. Also, quantifying the krill transport (flux) between the Peninsula and Scotia Sea has been identified as a high priority issue by the Convention for Conservation of Antarctic Marine Living Resources (CCAMLR).